1999 Gordon Conference on Reactive Polymers, Ion Exchangers and Adsorbents to be held July 18-23, 1999 in Henniker, New Hampshire

This proposal requests support for the 1999 Gordon Conference on Reactive Polymers, Ion Exchangers and Adsorbents to be held July 18-23 at New England College in Henniker, New Hampshire. This is an important conference to the field and the objectives of the 1999 conference are to provide research exchanges on ideas related to the fundamentals of polymer-supported reagents and their uses in enviromental and biochemical separations, catalysis and combinatorial century.